Geometric and Multiscale Aspects of Image Denoising Models

Mathematical models based on partial differential equations, the calculus
of variations, and associated numerical techniques have had great success
in image processing, especially in segmentation and denoising problems.
This project will extend some of the most successful of these models, such
as total variation based image denoising, to curve and surface denoising
tasks that are of fundamental importance in computer vision and computer
graphics applications. Accordingly, a central theme of this project is to
find novel and natural ways to generalize models originally designed for
processing images to processing curves and surfaces. This leads to
curvature dependent functionals that need to be minimized over geometric
objects. The project will draw on a variety of numerical techniques, such
as the level set method, to develop algorithms for the solution of these
challenging computational problems. It will also develop new variational
image denoising and segmentation models that are more effective than
current ones in multiscale decomposition of images.

The problems addressed by this project form a crucial step in diverse
applications of image processing, computer vision, and computer graphics.
In particular, surface denoising is a preliminary first step in many
automatic detection and recognition tasks that involve three dimensional
shapes, such as face recognition and target identification. It is also an
essential component of algorithms that fit surfaces to volumetric data,
which is needed in many medical imaging applications.